Pattern and Process in the Evolution of an Insect Diet

Prior work has documented a change in host-plant preference over the last ten years in a population of an herbivorous butterfly. This population has incorporated a European weed into its diet. Comparing the preference of insects for plants maintained in laboratory culture for ten years will test whether the change is due to adaptation by the insect or to a change in the plant that has increased its acceptability. Similarly, the fact that different populations of this insect exhibit different preferences could be due to genetic variation in the insect (already shown) or variation in the plants, or both. The potential contribution of variation in plant acceptability to this geographic variation will be quantified. The results of this research will show how the complexity of insect diet in time and space arises from past and present insect-plant interactions. The information has implications for biological pest control as a model for insect invasions of agricultural habitats.